Supporting a Community Building Workshop in Computer Education Research

To improve our understanding of the state of computing education and to grow the field, the Partnership for Advancing Computing Education (PACE) proposes to organize an interdisciplinary planning workshop on computing education research. PACE, a coalition of the ACM, the Association of Information Systems, IEEE-Computer Society, Computer Science Teachers Association, the Computing Research Association, and the National Center for Women & IT, is dedicated to improving the preparation of the computing workforce. Through discussion among leading computing and education researchers, we propose to achieve the following goals:
(i) to develop a shared understanding of the state of computing education research across subdisciplines
of computing, identifying gaps and overlaps;
(ii) to identify present strengths and future opportunities for research on computing education;
(iii) to assess the viability of building mechanisms for improved infrastructure, such as a research coordination network, and
(iv) to encourage knowledge sharing across the fragmented domains of study.